Investigation of the Adhesion of Enteromorpha Clathrata and the Consequent Impact on Cavitation and Dynamic Response of Hydrofoil/Lifting Surfaces of Underwater Vehicles

9312890 Wimberly Previous research supported by the National Science Foundation led to important information on the adhesion characteristics of fouling organisms and the resulting effect on the hydrodynamic drag of flat plates. This research is an extension of this work with the intention of first, continuing the investigation of the adhesion characteristics of Enteromorpha clathrata and thus characterizing the effects of antifouling paints on algal growth and adhesion, and secondly, investigating the effects of rapidly growing Enteromorpha clathrata cultures to lifting surfaces coated with tributyltin-based paints. The algal growth patterns on lifting surfaces in relation to several environmental conditions such as light intensity and quality, pH, salinity, temperature, nutrient levels and culture age will be investigated. The results will then be used to mathematically model the consequent impact on flow field cavitation, the hydrodynamic response and control characteristics of underwater lifting surfaces and support structures.